New Techniques for Authenticating Humans (and Other Resource-Constrained Devices)

This research focuses on new paradigms and techniques for designing secure authentication protocols

with an emphasis on settings when existing methods are simply unsuitable or inapplicable.

As examples, research of the PI supported by this grant addresses the authentication of human subjects using passwords or

biometric data; the design of highly-efficient cryptographic primitives suitable for use by severely resource-constrained devices;

and the use of bandwidth-limited authenticated channels for secure key establishment.

This research is intended both to establish firm theoretical foundations for these problems, as well

as to develop provably-secure and practical protocols based on what is learned.

The results of this research are expected to be applicable to a wide range of problems, including the authentication of

"cheap" RFID tags or sensors, authentication of human users via biometric features, and improved security for wireless home networks and

mobile wireless devices.

The educational component of this proposal centers on introducing students to the principles of modern cryptography and

computer security. This is accomplished, in part, via curriculum development, broad dissemination of course materials

including detailed lecture notes, and involvement of students --- at both the undergraduate and graduate levels --- in

research projects related to this work.